The Human Experience in Antarctica: Applications to Life in Space

Over the past few decades, it has become increasingly common for people to set forth for remote, harsh, and potentially dangerous environments in the interests of science, commerce and national defense. The focus of this conference is on innovative behavioral research pertaining to psychological and social adaptation to the antarctic, and by analogy, to outer space and other potentially harsh environments. The meeting will provide an opportunity for a diverse group of behavioral scientists, antarctic researchers, operational personnel, and space scientists to discuss common interests and future plans. The conference will specifically explore the application of recent theories and methods to understanding life in Antarctica and analogous settings. Experienced participants will be encouraged to identify critical research needs for behavioral research within isolated and confined settings and to apply the results of behavioral research findings to future polar and spaceflight operations. A report of the proceedings will be produced which will include a synthesis of recommended future research directions in this area of scientific activity. The Polar Biology and Medicine Program recommends support of this conference. The National Space and Aeronautics and Space Administration is providing joint support of the conference.